Acquisition of an Ion-Trap Mass Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at New York University will purchase a Ion-Trap Mass Spectrometer. This equipment will enhance research in a number of areas including 1) structure-based design of RNA binding ligands and the fundamental rules governing RNA-proteomimetic recognition; 2) synthesis of protein mimetics with novel properties; 3) construction of carbohydrate oligomer mimetic libraries to discover artificial ligands for binding to proteins and cell surfaces; 4) synthesis of chiro-optic switches; 5) development and identification of novel, site-specific DNA base lesions; and 6) synthesis of photoactive fullerene derivatives. The instrumentation will also be available to researchers in the Faculty Resource Network (FRN), a consortium of 13 historically black colleges and universities in the South and 15 regional liberal arts colleges.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. It is one of the fastest growing and most widely used analytical instrumentation techniques. These studies will have a strong impact in many fields, including biochemistry and materials science.